Sediment Flux and Fate of the Yangtze River Sediments Delivered to the East China Sea

OISE-0422901
Liu

This is a U.S.-China research project between Dr. Jingpu (Paul) Liu, North Carolina University and Professor Zhongyuan Chen, East China Normal University to study sediment flux and fate of the Yangtze River sediment delivered to the East China Sea. This is an exploratory project enabling Dr. Liu and David Velozzi, a graduate student, to join a research vessel operated by the East China Normal University to conduct two cruises in the East China Sea to study the sedimentary flux from the Yangtze River to the East China Sea. This research project will be jointly supported by the NSF and the National Natural Science Foundation of China.